"SURFO: Summer Undergraduate Research Fellowships in Oceanography"

This award provides funding for a summer internship program at University of Rhode Island's Graduate School of Oceanography (GSO) located in Narragansett, RI. This program has been active since 1986 and is called the Summer Undergraduate Research Fellowships in Oceanography (SURFO). Nine students/summer will participate in an eleven week research/education program that allows them to conduct independent research projects. The program aims to expose students who are majoring in math, physics, computer science and engineering to aspects of oceanographic research, and normally recruits rising Juniors with strong computational skills. Students receive one-on-one research instruction from a faculty mentor. They participate in a variety of educational activities, including an orientation session, a seminar series, field trips and several professional development workshops. At the end of the summer, students prepare both an oral and a written presentation on their research.